Chapel Hill Workshop on Geometry for Molecular Visualizationand Characterization, March 3, 1990, Chapel Hill, NC

The Workshop on Geometry for Molecular Visualization and Characterization will bring together software developers and biochemists to discuss the questions, "What computer-generated geometric representations of molecular structures might be useful for future work by the biochemical community?" and "What software tools might facilitate the specification of these new geometric representations by the biochemist?" The workshop will consist of presentations by participants of work- in-progress and proposed future work. In addition, round-table discussions to assess the state-of-the-art in this area and future directions will be held.